US-Austria Joint Workshop on Differential Equations and Applications; June 18-24, 1989; Leibnitz, Austria

This award supports approximately twelve U.S. mathematicians to participate in an international workshop on differential equations and their applications to be held in June, 1989, near Graz, Austria. The workshop was co-organized by Professors Jerome A. Goldstein of Tulane University and Franz Kappel and Wilhelm Schappacher of the Institute for Mathematics of the University of Graz. The main topics of the meeting are new directions and trends in the theory of differential equations, and applications in biology, physics and engineering. Approximately 40 mathematicians will participate, primarily from the U.S. and Austria but also from several other European countries. Presentations will include new research results and methods as well as concrete applications. Differential equations form one of the most rapidly developing areas in mathematical science. This is due mainly to the manifold applications of the theory to other disciplines, including biology, physics, chemistry, engineering, epidemiology, etc. This workshop should facilitate communication and foster collaboration between U.S. and European mathematicians working in this general area.